Structure and Excitations of Reduced Dimensional Systems

In this project Professor Mele will study the electronic and structural properties of conjugated polymers and other condensed matter systems in reduced dimensions. They will emphasize the importance of commensurability effects for the physical properties of polymers. Although these effects are generally recognized to be quite weak in conventional conducting polymers, Dr. Mele feels that these effects may dominate the physics of the polyanilines (and other similar "doped" structures). Also studied will be the appearance of a "topological" phase in the adiabadic evolution of a general class of quantum (and classical) systems. Situations in which this topological phase plays a demonstrable role in the physics of the coupled electronic phonon systems, which appear in various condensed matter contexts, will be sought.